TNTCAM Mark II - A New Mid-Infrared Instrument

Stencel, Robert E. AST-9724506 Funds will be used to develop a novel, mid infrared imager and imaging polarimeter and enhance the development of new talent for the design and construction of astronomical instrumentation. *** ??